DIAL: A Distributed Intelligent Agent Laboratory

This work focuses on the study of coordination between AI systems. One objective is to take techniques developed for different aspects of coordination and unify them in a single computational theory. Initially, the work will develop a formalism and computational theory that can lead to novel coordination techniques by drawing together the separate approaches of planning, organizational design, and scheduling. This theory provides a powerful framework for improving performance, reducing overhead, increasing reliability, and flexibly managing distributed resources among AI systems. The work will lead toward a generic coordination framework for developing AI systems, because we believe that reasoning about interactions with others is fundamental to intelligence. A second objective of DIAL is to build an experimental infrastructure for validating coordination theories and discovering new theories. To facilitate comparisons between alternative theories both within DIAL and elsewhere, a versatile, portable simulation testbed will be developed. Techniques will also be integrated into actual mobile robots to investigate the interplay between sensing, acting, reasoning, and communicating in real-time physical systems. The research will help pave the way for introducing intelligent, cooperating robots into real- world environments.